Nonlinear PDEs for Soft Matter Systems

Phillips
DMS-0604839

The investigator and his colleague analyze mathematical
models, described by nonlinear partial differential equations, of
soft matter systems, namely liquid crystalline and
superconducting materials. They focus on electro-magnetic,
optical, and mechanical interactions as well as thermo-mechanical
exchanges within them. They seek to identify qualitative
features in the solutions for these models including phase
transitions, the nature of defects, and their development.
Techniques from mathematical modeling, partial differential
equations, the calculus of variations, and finite elasticity are
employed. The models are highly nonlinear and expressed in terms
of nonconvex, second order energies. Developing analysis and pde
methods to address these features is part of the project. For
liquid crystals a major goal is to carry out a mathematical
analysis for the event of electrically driven optical switching
between bistable ferroelectric states in a smectic C* material.
A second goal is to carry out an analytic study of the defect
structure that appears in liquid crystals brought on by applied
stresses and phase transitions. In elastomers the investigators
study electrically and thermally driven mechanical deformations
in dry and swollen elastomers. In superconductivity they examine
current patterns characterized by the formation and evolution of
vortex filaments within them. For low temperature materials they
investigate both stationary and dynamic features of vortex
filaments in three dimensional bodies, using the time-dependent
Ginzburg-Landau equations. For high temperature
superconductivity they study the vortex structure in stationary
solutions to a d-wave model as well as current patterns in
solutions for the layered Lawrence-Doniach model.

Understanding physical interactions in soft matter systems
is central to the design process where one strives to make
smaller, faster, and more accurate devices. Liquid crystals are
used to make optical switches, nano devices, and displays.
Liquid crystal elastomers have been proposed by physicists to
model artificial muscles and other biological applications.
Superconductors are used for small scale sensors such as squids
(superconducting quantum interference detectors) and to make
powerful magnets. The approach the investigators undertake is to
analyze mathematical models that describe soft matter systems in
terms of nonlinear partial differential equations. The work
leads to predictions of qualitative features that the actual
materials should possess and insights that should be useful for
the design process as well as for the implementation of numerical
simulations.